Supportive Community College STEM Students Development, Persistence, Transfer, and Success

This project will contribute to the national need for well-educated scientists, mathematicians, engineers, and technicians by supporting the retention and graduation of high-achieving, low-income students with demonstrated financial need at Chemeketa Community College. A total of 98 scholars pursuing a transfer degree in biology, chemistry, data science, engineering, geology, mathematics, physics, and computer science will receive scholarships averaging $6554 for up to two years. Scholars will receive faculty and peer mentoring, and the project will build strong scholar cohorts through scholar specific sections of a first year experience course, field trips to relevant industry laboratories, and a speaker series. tutoring, STEM specific advising. Additional activities for scholars include tutoring, STEM specific advising, and transfer support.

The overall goal of this Track 2 Scholarships in STEM project is to increase STEM degree completion of academically talented, low-income undergraduates with demonstrated financial need. There is a significant national need to grow the STEM workforce and nurture key talent that will ensure economic competitiveness and provide domestic leadership across critical sectors. This project directly speaks to this need by supporting STEM student success, which will strengthen the workforce in biology, chemistry, data science, engineering, geology, mathematics, physics, computer science and other key areas of need. The project will be assessed by an experienced evaluator who will collect both formative and summative data, and the data generated will contribute to the knowledge base regarding effective strategies to support talented, low-income students in STEM. This project is funded by NSF’s Scholarships in Science, Technology, Engineering, and Mathematics program, which seeks to increase the number of academically talented, low-income students with demonstrated financial need who earn degrees in STEM fields. It also aims to improve the education of future STEM workers, and to generate knowledge about academic success, retention, transfer, graduation, and academic/career pathways of low-income students.